International Symposium on the Neurobiology of the Locus Coeruleus; May 16-19, 1990; Post Falls, Idaho

The conference proposed will bring together most of the world's leading experts on the locus coereleus to summarize and disseminate the major research accomplishments in this area of research. The conference is important and it is the first time that such a comprehensive conference on this topic has been put together. It may become a landmark in the field of motor systems and central noradrenergic innervation research.